Topics In General Relativity

This award advances the understanding of gravity, black holes, and the quantum structure of spacetime. It connects fundamental theory with phenomena that can be tested through gravitational-wave memory and precision black-hole imaging, including the photon rings targeted by the Black Hole Explorer concept. The work strengthens United States leadership in gravitational physics, supports the training and mentoring of an early-career researcher, fosters collaboration among U.S.-based particle theorists, relativists, and astronomers, and communicates discoveries about black holes and the nature of spacetime to broad audiences.

The research develops the infrared and holographic structure of general relativity through gravitational soft theorems, asymptotic symmetries, and the Lw1+∞ algebra. Priority directions include single-minus-helicity graviton amplitudes and quantum self-dual gravity; connections among flat, de Sitter, and anti-de Sitter holography through the cosmological-constant deformation of celestial symmetries; and classical and quantum black-hole questions involving Love numbers, soft hair, decoherence, microstate counting, and information. Twistor, scattering-amplitude, effective-field-theory, and conformal-field-theory methods will be used to obtain new amplitudes, symmetry relations, and holographic data, with links to photon-ring and gravitational-memory observables.